Response to Intervention in Mathematics:Beginning Substantive Collaboration between Mathematics Education and Special Education

The National Council of Teachers of Mathematics (NCTM) in collaboration with the Council on Exceptional Children (CEC) is organizing and hosting a focused working conference on Response to Intervention (RtI) and related strategies in teaching and assessment in Mathematics. The ultimate goals of this work are: To build a core community of researchers and practitioners from mathematics education and special education to identify, expand and sustain the research needs in this critical area; to identify and improve the research available related to teaching mathematics within a Response to Intervention model; and to develop professional development resources to support teachers's (pre-service and in-service) understanding and application of research-based RtI strategies in mathematics.

Expected outcomes include: a preliminary analysis of needed research studies; a synthesis of both mathematics education research and special education research around a key question of interest; and examples of content for inclusion in professional development and pre-service teacher education. Results will be disseminated through NCTM and CEC print, web, and conference facilities.